Enhancement of Secondary Science Laboratory Instruction

This proposal describes a four-year program with the first three years funded by NSF and the fourth funded by the University and other outside sources. The primary objective is to improve instruction in secondary school science laboratories by using the computer as a tool either to analyze conventionally acquired data or to both acquire and then analyze data. This dual role for the computer lends credibility to the acquisition of different skills in the disciplines of biology, chemistry, earth science and physics. Two teachers from each participating school will be selected to develop the strategies in each of these two instructional modes. This will be further enhanced by a series of school-site visits and sharing conferences.Each year, 30 well-prepared teachers will be selected to attend a three-week summer workshop, followed by the visits and conferences during the school year. Appropriate laboratory computer applications will be developed and refined, using both original and existing materials. The applications, including implementation and teaching strategies, as well as the workshop materials, will be disseminated nationally through presentations at professional meetings. An ongoing evaluation of materials, instructional strategies and effectiveness in the classroom will enhance the potential for success. About 28% of the cost of this project is being shared by Ithaca College and the participating school districts. This will insure the implementation of the program in the schools and the continuation into year four. Additional private source funding is being sought for year four, but sufficient commitment is included to provide for the project as written.